Meeting: Regional Workshop for Discipline-Based Education Researchers

This project is bringing together Biology, Biochemistry, Chemistry, Computer Sciences, Engineering, Mathematics, Earth and Planetary Sciences, Physics and Astronomy education researchers from postsecondary institutions across New Mexico, with the goal of promoting cross-disciplinary research in the emerging fields of Discipline-Based Education Research (DBER). The meeting will be in a workshop format and will be focused on current topics, emphasizing contextual and cultural considerations important to New Mexico. New Mexico has a number of active grants to which DBER work can contribute significantly and these grants, in turn, will help to focus the research undertaken by DBER scholars in New Mexico.